NRT: Heterogeneous Wireless Access Network Test Bed (Rev.)

Over the next 10-15 years, the core and access networks will evolve in different directions.
The core will evolve toward an all-optical system, while the access network will continue to
experience a proliferation of technologies and network types, tuned to the economics of specific
deployments and the requirements of users and applications. In particular, wireless technologies
will play an increasing role not only for mobile applications but as a cost-competitive substitute
for fixed wire access networks.

The researchers propose to develop a test bed focused on the access network, containing both wired and
wireless components. It will act as a shared-facility test bed for research on connectivity, quality
of service, security, reliability/availability, and network and traffic management for
heterogeneous access networks. The test bed will also serve as a proof-of-concept test bed for
wireless networks that exploit advanced flexible software defined radio devices, steerable
antennas and upper millimeter wave point-to-point links to improve network performance under
resource constraints.

There will be two main academic centers of activity (Stevens Institute of Technology, and
University of Colorado), supported by activities at one other institution, (University of Utah).
There will also be substantial participation from non-academic partners, including technology
companies (Vanu, Inc., Lightpointe, and BBN). Use of the test bed by others will be solicited.

Intellectual Merit: The access network is vitally important for service to the end user, yet
frequently neglected in studies that focus on the high-speed core or the wireless link in isolation.
A test bed in this area will enable collaborative research on ways to exploit and manage multiple
networks simultaneously for overall optimization, maintain connectivity as mobile devices roam,
exploit one network to support another, and improve security. In the past networking research
has focused on layers 3 and higher, while wireless research has primarily looked at layers 1 and
2. A critical aspect of this test bed is that it will support cross-layer integrated experiments all the
way from layer 1 to layer 5, leading to future networks that can exploit physical layer flexibility,
application awareness, and advanced routing for overall better performance and service.
The hardware and software deployed in the test bed will be designed for easy modification
and repeatable experiments at all layers. The team building the facility brings deep experience in
these modifiable systems: Dirk Grunwald (Colorado) with the Click modular router, John Chapin
(Vanu, Inc.) with Vanu Software Radio, Jay Lepreau (Utah) with the Emulab software platform,
Craig Partridge (BBN) with protocol software, and Igor Alexandrov (Stevens) with millimeter
wave bands radio. The effort is led by Paul Kolodzy (Stevens), formerly of the FCC and
DARPA, who brings a wide overview of access network issues.

Broader Impact: The proposed test bed will provide a major research facility, bringing
together a community from all over the country to focus on the interrelated problems facing
access networks. In addition, novel educational approaches will be pursued where students will
have access to multiple advisors with key complementary expertise, and key industrial partners.
A series of high profile workshops will facilitate research agenda setting and community
formation. Tangible products will include widely disseminated research papers and a series of
white papers aimed at non-specialists. Finally a series of demonstrations of the test bed will be
conducted for the research and lay communities.

Progress on the research problems of access networks will reduce the cost and increase the
service level provided to all users of the Internet, especially those in currently underserved
communities. Additionally, devices and techniques that better handle heterogeneous wireless
networks will improve the interoperability problems facing public safety and homeland security.